EarthCube Community Workshop: Designing A Roadmap for Workflows in Geosciences

EarthCube is focused on community-driven development of an integrated and interoperable knowledge management system for data in the geo- and environmental sciences. By utilizing a cooperative, as opposed to competitive, process like that which created the Internet and Open Source software, EarthCube will attack the recalcitrant and persistent problems that so far have prevented adequate access to and the analysis, visualization, and interoperability of the vast storehouses of disparate geoscience data and data types residing in distributed and diverse data systems. This awards funds a series of broad, inclusive community interactions to gather adequate information and requirements to create a roadmap for a critical capability (workflow) in the development of EarthCube, a major new NSF initiative. Workflow in the context of EarthCube, and cyberinfrastructure in general, encompasses a broad range of topics including distributed execution management, the coupling of multiple models into composite applications, the integration of a wide range of data sources with processing, and the creation of refined data products from raw data. A key benefit of the funded work in terms of evaluating and creating community consensus on the best way forward for this capability (i.e., workflow) is the ability to document the provenance of data used in modeling and reproduce model and data-enabled scientific results. The funded workshop and information collecting activity will be open to all interested parties and is being led by a diverse and expert team of cyberinfrastructure developers, computer scientists, and geoscientists. Broader impacts of the work include converging on approaches, protocols, and standards that may be applicable across the sciences. They also include the fostering of close interaction between communities that do not commonly interact with one another and focusing them on the common goal of creating a new paradigm in data and knowledge management in the geosciences.